Travel Support to Attend the Seventh Conference on Mesoscale Processes; University of Reading, United Kingdom; September 9-13, 1996

9631751 Hallgren This award is to provide support to help defray travel expenses incurred by select U.S. graduate students and those in post-doctoral positions that will allow them to attend and present papers at the 7th Conference on Mesoscale Processes, jointly sponsored by the American Meteorological and Royal Meteorological Societies. The conference will be held 9-13 September 1996 on the campus of the University of Reading. Endorsement and co-sponsorship for this meeting has also been obtained from the World Meteorological Organization's Commission on Atmospheric Sciences. The conference will host sessions on a number of phenomena and research programs of interest internationally, including mesoscale aspects of fronts and frontal cyclones (with emphasis on the upcoming joint U.S.- European Fronts and Atlantic Storm Tracks Experiment), orographic flows and gravity waves (including work relevant to planning for the Mesoscale Alpine Project, tropical convection (the Tropical Ocean-Global Atmosphere Coupled Ocean - Atmosphere Response Experiment), and related modeling and forecasting activities. The setting on the campus of the University of Reading will not only allow for desirable reduction of per diem costs, but also affords ready access to such notable facilities as the European Center for Medium-Range Weather Forecasting, the United Kingdom Meteorological Office, and Oxford University. Support provided under this proposal will be distributed to a limited number (approximately 12-15) graduate students or beginning post-docs who meet the following eligibility requirements: (1) is a U.S. citizen, (2) has a paper accepted for oral or orally- introduced poster presentation at the Conference, and (3) agrees to cost share their travel costs. The selection process and actual distribution of funds will be administered by the executive office of the American Meteorological Society. ***